Motion Analysis in Undergraduate Kinesiology

The mechanics of human motion is taught through the use of a video/computer motion analysis system. This system is incorporated in laboratory experimentation in courses in undergraduate Kinesiology. The motion analysis system is applied directly directly to the teaching of kinematics and indirectly to the teaching of kinetics. The equipment consists of a 2D video analysis unit, a computer subsystem and a video subsystem. The grantee provides funds for this project that are an equal match for the NSF award.